RUI: Structured Operational Semantics of Concurrency

This project is an investigation of operational semantics of concurrent processes. Preliminary results reveal some inherently unobservable behaviour in the interactive testing of concurrent processes. The work leads to the formulation of a new, general notion of Structured Operational Semantics for concurrent processes, generalizing the traditional framework.